RUI: Development of a System for Insertional Mutagenesis in Yeast

The budding yeast Saccharomyces cerevisiae is valuable for studies of gene expression because of its ease of culture and amenability to classical and molecular genetic studies. A genetically engineered inducible Ty transposable element, containing a functional HIS3 gene, it used to obtain insertion mutations in suitable yeast strains. The insertions are identified in genetic analysis by the ability of cells to grow without added histidine (the His+ phenotype). Isolated DNA carrying an insertion hybridize to radioactive probes of the HIS3 sequences. We plan to improve procedures for obtaining mutants with single Ty insertions and for demonstrating linkage of the His+ phenotype with the mutant phenotype. Undergraduate research assistants at Allegany Community College are assisting in developing a method for screening large numbers of mutants by selection of a random sample of spores. We have obtained 2 types of mutations: (1) activation of a silent gene which alters the control of mating type, resulting in sterility, and (2) disruption of an essential gene, resulting in lethality. I plan to involve students in isolating and characterizing Ty insertion mutations which disrupt genes essential for growth or for the ability to synthesize specific nutrients, and for mutations which activate other cryptic or silent genes.